Engineering Research Equipment Grant: Experiments in ActiveControl of Vibrations and Normal Mode Localization

This project provides resources to procure equipment to enhance research in the active control of vibrations and normal mode localization. Specifically, the research entails (1) understanding the phenomenon of mode localization in both periodic and non periodic structures, (2) active control of structural vibrations based on mode localization, and (3) the experimental validation of a recently developed frequency domain design. The equipment will be used to instrument two experimental facilities associated with this research. One facility is a long compliant truss structure dedicated to normal mode localization studies in periodic structures, and the other is a simply supported thin flexible beam for localization studies in non periodic structures. The equipment comprises a portable digital storage oscilloscope, brushless DC torque motors, power supplies and amplifiers for the torque motors, a non contacting displacement measuring system, and modal analysis equipment.